Connections to NetIllinois - Phase V

9412928 Hartman Bradley University with participation and support from major educational institutions and industry, and a strong working partnership with CICNet, the state of Illinois Central Management Services (CMS), and with considerable networking experience within its member shop, has developed a communications network known as netIllinois. NetIllinois request support to provide Internet connection to seventeen (17) Illinois colleges and universities (Belleville Area College, Richard J. Daley College, Kennedy-King College, Malcolm X College, Olive-Harvey College, Harry S. Truman College, Harold Washington College, Wilbur Wright College, Elgin Com. college, Greenville College, Kankakee Com. College, Lake Land College, Lincoln Land Com. College, McHenry County College, Richland Com. College, State Com. College, and Waubonsee Com. College (all are community colleges except Greenville). The requested connections will support connectivity to netIllinois, CICNET, NSFNET, and the greater Internet. It will also provide access to state, regional, and national computing resources and databases; and foster communication and collaboration among teachers, students, scholars, and researchers at these institutions and their peers within the worldwide education and research community. The network will provide a consistent statewide architecture for NSFNET access for a broad variety of entities engaged in education and research. This cooperative network will provide gateways to regional, national, and international networks and will be consistent with their standards. It will further the institutions' work in enhancing the state's economic development through a well-educated workforce, accessible training opportunities, and research and development partnerships. Another goal of the network is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state.